Nebraska EPSCoR Infrastructure Improvement Grant

Nebraska EPSCoR, in cooperation and collaboration with research universities in
the state of Nebraska, seeks to build research infrastructures in several areas of
informatics. The effort will be directed at three primary areas that are consistent
with the Nebraska EPSCoR Strategic plan as well as plans and strategic
directions of the participating universities including: (1) development of wired and
wireless network technologies that will more effectively link ongoing inter-campus
efforts within a secure distributed information infrastructure, (2) development of a
test-bed to research next generation Enterprise Resource Planning (ERP)
systems architectures that are viable and efficient for e-commerce through
collaboration with the private sector, (3) development of inter-campus capabilities
in newly emerging research areas of bio-informatics and computational biology.
The proposed infrastructure initiative in informatics complements the developing
information technology industry in the state, involves scientists and engineers
from four university campuses (University of Nebraska, Lincoln (UNL), University
of Nebraska Medical Center, University of Nebraska, Omaha (UNO), and
Creighton University. It provides for an integrated plan to accomplish goals that
are considered crucial for establishing competitiveness in computational-based
informatics research within the state of Nebraska. In addition to the major
development effort for the interdisciplinary informatics infrastructures, the
proposed project will greatly enhance the computational capabilities available to
a broad range of fields of research and instruction.
Additional components of the project will support educational activities and
research experiences for underrepresented groups, internships for science and
technology students to work in private industry, a small grants program for faculty
early in their careers, technical assistance and faculty travel, and outreach to
other Nebraska colleges and universities.